Publication of Antarctic Research Series

The Antarctic Research Series, begun by AGU in 1963 with the aid of a grant from the National Science Foundation, publishes the results of all aspects of Antarctic research. Volumes have provided extensive and authoritative reports of research results in marine and terrestrial biology, marine geology and geophysics, solid Earth geophysics, geochemistry, oceanic and atmospheric studies, glaciology, and geology and paleontology. These volumes are designed to serve working scientists, students, and laymen interested in biological or physical research endeavors in Antarctica and on the occasion, the lay public interest in the Antarctic environment. The primary purpose is to provide an effective and authoritative outlet for research conducted in Antarctica. Much of the research is conducted under the U.S. Antarctic Program. Thematic volumes are devoted to a single topic or occasionally a particular geographic area. In soliciting, reviewing, and selecting papers for publication, particular attention is paid to ensuring the quality of the series. To date, over 15,000 pages have been published in 62 volumes and a special collection of papers in Reviews of Geophysics. An additional ~ 1000 pages are in press. The series is recognized the scientific and library communities, who look to it to provide continuing access to south polar results. The AGU Board of Associates Editors for the Antarctic Research Series has expanded the modes of publication and continues to monitor the needs of the research community. The Board also recognizes NSF's growing desire to disseminate results from Antarctic research to the educated public and has agreed to investigate the possibility of publishing a volume that describes the Antarctic environment, integrates the various dynamic systems, and assesses interactions and influences on the global environment.